Transcendental Numbers and Special Analytic Functions

DMS-0340812
Papanikolas, Matthew A.

Abstract:

Title: Transcendental numbers and special analytic functions

The investigator proposes to work on several
problems about transcendental numbers and special
values of analytic functions, in order to
understand the many links between analytic and
arithmetic quantities. In one project, this
research explores properties of numbers arising in
positive characteristic from Anderson-Drinfeld
motives, such as periods and logarithms, and in
particular focuses on the algebraic relations
among Carlitz logarithms. Furthermore, in
collaboration with N. Ramachandran, the
investigator plans to study the relationships
between extension groups of abelian varieties over
number fields and special values of Hecke
L-functions and Rankin-Selberg L-functions.

One of the fundamental branches of modern
mathematics, number theory serves as the basis for
many applications, including cryptography and
coding theory. The proposed research considers
questions involving the interplay between
arithmetic and analytic aspects of number theory,
which have their beginnings in classical work of
Euler and Gauss. Several parts of the project
lead naturally to problems for graduate and
undergraduate research.